Chiral Control of Excitons: Infra-Red Circular Polarized Emission in Carbon Nanotubes through Chiral Defect Chemistry

This project aims to discover new ways to control the chirality, or "handedness," of light emitted by carbon nanotubes (CNTs). Just as our left and right hands are mirror images that cannot be superimposed, many molecules exist in left- and right-handed forms, a property known as chirality. Chiral molecules respond differently to left- and right-handed circularly polarized light, making chirality fundamental to chemistry, biology, medicine, and quantum technology. By combining calculations with chemical synthesis and optical experiments, the team will investigate how molecules attached to the nanotube create chiral defect sites that control the handedness of the emitted light (photons). These efforts will establish new design rules for engineering chemically tunable carbon-based nanomaterials with chiral optical response.

CNTs provide a unique platform for this research because engineered defects can transform them into bright single-photon emitters that operate at room temperature in the near-infrared (NIR) spectral region. Single photons are a fundamental building block of quantum technology carrying quantum information with exceptional security. Because NIR photons travel efficiently through optical fiber networks with minimal signal loss, CNTs are promising materials for quantum communication. NIR light also penetrates deeply into biological tissue, enabling improved biomedical imaging and sensing. Adding control over the handedness of emitted photons will provide a new way to encode and manipulate optical information, opening opportunities for next-generation quantum technologies, secure quantum communication, and improved selectivity in chiral biochemical sensing. Educational and outreach activities will broaden participation in STEM by engaging students nationwide in emerging quantum and nanotechnology research.